Development of a Modern Power Systems Laboratory

This project develops a modern, up-to-date power laboratory that provides realistic instruction in actual power systems operation. Digital simulation software is being acquired for transient, load flow and harmonic analysis. An analog power system simulator is being assembled, using control devices and instruments found in actual power systems. The equipment being purchased includes two 5 KW generators with speed controls, a switched capacitor power factor correction unit and a harmonic monitor. These items, together with an existing 34 KW generator allow experiments in power electronics and analyses of present day problems such as harmonics and ground system voltages. The project addresses the need for more emphasis on power technology education. The award is being matched by an equal amount from the principal investigator's institution.